Summer Symposium in Real Analysis XLI

This award provides funding to help defray the expenses of participants in the the "Summer Symposium in Real Analysis XLI" that will be held June 18-24, 2017, on the campus of the College of Wooster in Wooster, Ohio. For additional information, see one of the following two websites:

http://www.wooster.edu/academics/areas/mathematics/raex2017/
https://www.stolaf.edu/analysis/

This annual conference, which began in 1978 and of which the 2017 meeting will be the forty-first installment, is considered to be the premier conference of its type by the members of the real analysis community. The featured speakers in the 2017 event include Bruce Hanson, Mikhail Korobkov, Assaf Naor, and Artur Nicolau. They will address topics ranging from differentiability properties of functions to the geometry of Banach spaces. The program allows ample time for junior mathematicians to present their work.